MRI: Acquisition of an Environmental Scanning Electron Microscope System

Funds are requested for the purchase of an environmental scanning electron microscope to be used in a new Micro-Environmental Imaging and Analysis Facility. Among the projects that would benefit from the new equipment are studies of biofilm mobility in the soil, non-viral gene delivery methods, protein-inorganic biomineralization, and nanobiofabrication techniques. The major benefit of the new equipment would be its ability to image delicate materials such as biologicals without introducing artifacts in the sample preparation process. Faculty from numerous departments including Materials, Chemistry, Chemical Engineering, and Molecular, Cellular, and Developmental Biology would utilize the equipment.